Atomic Force Microscopic and Ring Disk Voltammetric Studies on the Role of Chloride and Oxygen in Copper Electroplating

ABSTRACT CTS-9622634 A rotating ring/disk electrode (RDE) system and a control system for an atomic force microscope (AFM) are acquired. They are used to study the roles of chloride and dissolved oxygen in copper electroplating, including effects on the kinetics of deposition and on morphological development such as crystalline anisotropy, kinetic roughening, and facet formation. ***